Extending the Integration of Unidata Software and Data into Research, Education, and Forecasting at North Carolina State University

North Carolina State University (NCSU) requests support to replace its outdated equipment. Specifically, NCSU proposes a one-time upgrade to a SUN Ultra-60 with a single 450 MHz processor, and 1 GB RAM. With the new upgrade, students will be trained in the latest weather analysis techniques and be able to develop case studies for research in important meteorological problems. Various studies of East Coast weather phenomena will use the observations and model data. Furthermore, the real-time mesoscale models that focus on the local area will be very useful in solving forecasting problems.